Exploring the Initial Upper Paleolithic at Üçagizli Cave, Turkey

With support from the National Science Foundation, Dr. Steven Kuhn and a
group of international researchers will continue archaeological excavations
at UUagizli ("three mouths") cave in south-central Turkey. The team includes
professional archaeologists, physical anthropologists, geologists, and specialists
in the analysis of ancient plant remains, as well as graduate students from
the U.S., Turkey, and western Europe. The central goal of the project is
to examine evidence for marked changes in human behavior within the earliest
Upper Paleolithic period, and to place these developments in their environmental
context. Archaeological deposits at the site span the period between about
30,000 and 43,000 years before present. Although humans with essentially
modern skeletal anatomy had appeared much earlier, many researchers believe
that it was only after 45,000 years ago that there is evidence in Eurasia
for complex technologies, symbolic communication and art, and other features
of material, social and intellectual life that distinguish fully modern
humans from their ancestors. Results from excavations at UUagizli cave
to date have helped expand our understanding of changes in economies and
technology for this crucial interval in human history. The site has also
yielded remains of what are among the earliest ornament-making traditions
in Eurasia. These findings are especially important because they document
the use of material culture as a medium of symbolic communication, long
considered an important rubicon in human cognitive evolution. One issue
guiding the research is whether developments in human behavior after 45,000
years ago represent local responses to changing ecological and demographic
conditions, or whether they reflect the appearance of new human populations
with enhanced cognitive abilities. Continuing excavations will allow us
to examine in detail the timing of major shifts in behavior, and whether
they occurred independently or in concert. Studies of animal bones, remains
of shellfish, as well as ancient pollen and phytoliths (durable crystalline
components of plant tissues) will allow us to place these developments in
their environmental context, helping to distinguish broad evolutionary trends
within the human species as a whole from local adaptations to changing conditions.
At the same time, the project is helping to establish new links between
academic institutions in Turkey and the United States. Through their participation
in the research, students from Ankara University obtain training in field
and lab methods. In exchange, American graduate students get valuable
overseas research experience as well as material for theses and dissertations.